RAPID: New Acceleration in Ordonnansbreen in the Negribreen Glacier System

The motivation for this study is detection of a new acceleration in Ordonannsbreen, a glacier in the Negribreen Glacier System (NGS) in Arctic Svalbard, observied in May 2019 using satellite data. Glacial acceleration is a major source of uncertainty in assessments of sea level rise, and observations of glacial surging are rare and therefore poorly understood. In this RAPID response project, airborne geophysical data will be collected in this study, and in combination with satellite images and data leveraged from a separate study of neighboring Negribreen glacier, will address questions about glacier surge and the interaction between glacial acceleration and climate warming. The investigator will also advance use of machine learning to analyze complex satellite data. For outreach, the investigator will share observations with the public via a website about glacial surge and present results at local K-12 schools. In addition, this project will support training for graduate and undergraduate students, engaging them in field work and new methods for mathematical analysis.

The investigator has recently detected a new acceleration in Ordonannsbreen glacier via satellite data, and this study will leverage prior work on a surge in neighboring Negribreen glacier to understand changes in the larger glacier system. The motivating question is whether this event is simply another surge in an Arctic glacier or part of the larger disintegration of an entire glacier system. To address the research objective, the investigator will 1) collect airborne laser altimeter, image, Global Positioning System (GPS), and Inertial Measurement Unit (IMU) data in one field season in summer 2019; 2) derive a 3-dimensional representation of surface elevation in crevassed terrain and elevation change to estimate mass loss; and 3) address the question of whether the acceleration can be attributed to physical processes in the glacier system and/or in a warming environment. A crevasse-centered mathematical approach that integrates physical processes and machine learning will be applied in observation, analysis, and modeling. Automated classification of crevasse types and other surface signatures will lead to a classification of acceleration types and aid in constraining parameters in thermo-mechanical glacier models, to be developed in future work.